Conference: Midwest Dynamical Systems Conferences, 2025 and 2026

This grant supports participant travel for (1) two meetings of the Midwest Dynamical Systems conference: May 1—May 3, 2026 at the University of Notre Dame, and in Fall 2026 at the University of Wisconsin, Madison; and (2) an Early Career Conference in Spring 2027 at Indiana University, Indianapolis. Midwest Dynamical Systems is an established, rotating annual conference series. Conferences feature research talks highlighting new advances in the field, poster sessions for graduate students and early-career researchers to present their research, and networking opportunities for graduate students and early-career researchers.

Dynamical systems is a very active area of mathematical research with many interactions with other areas of mathematics. Midwest Dynamical Systems conferences attract researchers from many branches of dynamics and promote interactions with other fields of mathematics. Midwest Dynamical Systems conferences especially encourage talks that build connections between two or more different areas of mathematics and that promote new areas of promising research. Information about the May 2026 conference can be found at the website https://sites.google.com/view/mwds2026/ and information about past and upcoming conferences can be found on the conference series website https://mwds.math.northwestern.edu/